Preserving Diversity via Robust Optimization

This award will support national health and prosperity by developing large-scale quantitative models for the strategic design of conservation plans to preserve biodiversity. Biodiversity is essential to human survival on Earth. A key strategy for preserving biodiversity involves making strategic land use decisions over time to create a system of habitat reserves. Long-term planning for these reserves faces challenges due to scarcity of data on species prevalence and resilience, uncertainty about land development activities, and changes over time in the ability of land tracts to sustain diverse species. This project uses a data-driven, computationally efficient robust optimization approach that can assist land use planners in making decisions that affect wildlife and fishery management and that may impact the prosperity of surrounding communities. The project will leverage ongoing collaborations with the United States Geological Survey, as well as Panthera and the Wildlife Conservation Society. The PIs will involve female graduate and undergraduate students in the project through the Women in Science and Engineering program at the University of Southern California. In addition, they will integrate the outcomes of this research into graduate and undergraduate courses they teach.

The project take a rigorous, quantitative approach to conservation planning that utilizes land acquisition and development data to inform novel multi-stage robust optimization models. The framework provides a general modeling scheme for optimization problems under endogenous uncertainty. These models involve binary adaptive decision variables with an exponential number of contingencies whose chance of occurrence is also decision-dependent. Spatio-temporal uncertainty sets are constructed using land use projections obtained from governmental agencies and NGOs. The PIs will extend the K-adaptability approach to the multi-stage setting, and will investigate techniques to provide lower bounds on the optimality gap.